Geometric Lessons from String Theory: Applications in Calabi-Yau and tt^* Geometry

Abstract

Award: DMS-0605639
Principal Investigator: Katrin A. Wendland

It has become a successful practice in mathematics to take
advantage of lessons learnt from physics. In this proposal, three
such lessons are singled out, which should be of interest in
their own right but also contribute to the proposer's long term
research aims, a complete understanding of conformal field
theories (CFTs) on K3 surfaces and beyond. The first part of the
project is devoted to classically unknown properties of
elliptically fibered Calabi-Yau 3-folds, arising from the
conjectured heterotic-type IIA string-string duality. We will
combine an algebraic geometric and an index theoretic approach,
which is novel. A new index theorem and novel insights into the
mathematics of the duality are aimed for. A recent conjecture of
John McKay is also tested, relating Dynkin data to sporadic
groups. The second part of the project deals with so-called TERP
structures, which underlie the geometry of moduli spaces of
supersymmetric quantum field theories. Here, D-branes and their
stability conditions shall be studied using techniques from
geometric analysis and integrable systems rather than the
standard approaches. CFTs on K3 surfaces are studied in the third
part of the project, where for a powerful new family of examples
various techniques for the study of boundary CFTs and vertex
operator algebras shall be tested. A generalization of previously
obtained results about CFTs on K3 surfaces to certain
Borcea-Voisin 3-folds is also planned. This research will
underpin and generalize the PI's previous results, confirming and
extending an applicable dictionary between geometry and CFT.

String theory is as yet the most promising candidate for a
physical model of the real world. It describes particles and
forces of nature using one-dimensional extended objects, the
strings, whose behavior naturally depends on the ambient
geometry. Vice versa, one can view these strings as testing the
ambient geometry, whose properties can be read off from the
behavior of the strings. This bi-directionality is crucial, since
string theory on the other hand uses the language of quantum
field theory which in many ways is richer than classical
geometry. Hence string theory provides a natural bridge between
two fundamental, seemingly unrelated concepts: quantum field
theory and geometry. The proposed research aims to make use of
this bridge. In particular, it is proposed to use classically
unknown predictions coming from string theory to gain a deeper
understanding of various geometric structures, including
particular Calabi-Yau 3-folds and so-called tt* geometry in
general.